U.S.-New Zealand Cooperative Research: Mechanisms of Respiratory Sensation in Humans

This award supports a visit by Dr. Paul W. Davenport of the University of Florida to the University of Auckland, New Zealand, to work with Dr. Paul Hill to investigate mechanisms of respiratory sensation in humans. Respiratory sensations allow humans and animals to sense and adjust their ventilation to meet changing environmental demands. The sensation of increased inspiratory mechanical loads has been previously studied using psychophysical techniques, but very little is known about the sensory mechanisms mediating the sensation of mechanical loads. Recently an evoked potential technique was used to demonstrate the activation of somatosensory cortical regions by inspiratory loads. This new respiratory related evoked potential (RREP) technique has the potential to increase our understanding of the physiological mechanisms mediating respiratory load sensation. The researchers will use inspiratory occlusions to determine the cortical generator of the RREP early P1 peak. They will standardize the stimulus/ response paradigm and correlate the RREP with subjective measures of respiratory load sensation to begin the systematic investigation of the underlying physiological mechanisms. The results of these experiments will provide new information of the application of RREP's to the study of respiratory sensations.